Collaborative Research: Structural-Petrologic Characterization of the San Andreas Fault Zone in the SAFOD Drill Holes

0454525
Chester

The scientific objective of SAFOD is to understand the physical and chemical processes of
deformation and earthquake generation within an active, plate-bounding fault. Comprehensive
understanding will be possible only if the structure and geochemistry of the fault zone are
thoroughly documented and integrated with other data. This collaborative effort will characterize
the composition, structure and deformation mechanisms of the San Andreas fault at the
Observatory. Observations of core and cuttings from the pilot hole and first two phases of drilling
(2004-2005), and of samples from fault exposures near the drill site, will be integrated with
geophysical and hydrologic data presented in other SAFOD studies to address key questions
regarding structure, physical properties and mechanics of the fault, and to test hypotheses of
earthquake rupture dynamics, energy balance, and fault weakening. Work includes determining
fault rock lithology, and distributions and orientations of fractures, secondary faults, veins, and
particle sizes, and targeting key structures for detailed microstructure, mineralogy, and
geochemistry analyses.